NSF Astronomy and Astrophysics Postdoctoral Fellows Symposium

ABSTRACT

AST 0701849 Jeffrey Kenney (PI), Nathan McCrady (co-PI),
Mary McSwain (co-PI), Erik Rosolowsky (co-PI)

Dr. Jeffrey Kenney (Yale University), along with co-PIs Nathan McCrady
(UCLA), Mary McSwain (Yale University), and Erik Rosolowsky
(Harvard-Smithsonian CfA) are awarded funds to organize and conduct
the fifth annual symposium of the NSF Astronomy and Astrophysics
Postdoctoral Fellowship (AAPF) program. The symposium, to be held
January 5-6, 2007 in Seattle, WA, will bring together the AAPF fellows,
faculty mentors, prospective AAPF applicants, and interested members
of the astronomical community. This will allow the fellows to present
their research and educational activities, and better establish ways to
enrich the fellowship experience itself. Additionally, fellows will
obtain opportunities to establish interdisciplinary projects with
colleagues during the symposium.

The integration of educational activities into the research efforts of
the fellows provides for a broad impact of the fellowship program. Many
fellows participate in K-12/public outreach activities, leading to
enhancement of the public's interest in science. The symposium will
allow the fellows to share their ideas and experiences, not only among
themselves, but also with faculty mentors and with others in attendance.
Of particular note for this year's symposium is the joint meeting of the
American Astronomical Society and the American Association of Physics
Teachers (which immediately follows the AAPF symposium), which should
result in an even richer pool of potential attendees to the symposium
interested in science education and, thus, the chance to reach an even
broader audience than in previous symposia.